Conference on Complex Analysis

ABSTRACT

An international conference on Complex Analysis will be
held on the campus of the University of Wisconsin-Madison from
March 16 to March 19, 2006. The focus of the meeting will be on
Recent rends in complex analysis. The emphasis will be on the Cauchy-Riemann and related partial differential equations, analyticity and algebraicity of CR-mappings and equivalence of real submanifolds, Levi-flat hypersurfaces, solvability of invariant non-principal type operators, analytic hypoellipticity, interpolation and sampling,
proper holomorphic maps, almost complex manifolds and infinite dimensional complex analysis.

The conference will provide opportunities for an easy exchange of ideas and consolidation of recent progress in Complex Analysis.
In addition, researchers from Europe and the United States who would not otherwise have the opportunity to collaborate will find one by this
meeting. Moreover the conference will enable students and recent PhD. graduates to meet leading researchers in the area and learn about the important unsolved problems.